REU Site: Building digital tools to support endangered languages and preserve environmental knowledge in Mexico, Micronesia, and Navajo Nation

This project is supported under the Research Experiences for Undergraduates (REU) Sites program, which is an NSF-wide program although each Directorate administers its own REU Site competition. This program supports active research participation by undergraduate students in an effort to introduce them to scientific research so as to encourage their continued engagement in the nation's scientific research and development enterprise. REU projects involve students in meaningful ways in ongoing research programs or in research projects designed especially for the purpose. The REU program is a major contributor to the NSF's goal of developing a diverse, internationally competitive, and globally-engaged science and engineering workforce. The Social, Behavioral and Economic (SBE) sciences Directorate awarded this REU Site grant to Swarthmore College to provide undergraduate students with intensive training in community-based collaborative language documentation. The project builds bridges between indigenous linguists in the US academic community, Mexico, Micronesia, and the Navajo Nation, with collaborative research that benefits all parties. It helps uncover deep connections between languages and landscapes by documenting the knowledge base about the natural world found in endangered languages. The resulting linguistic materials support local communities' language revitalization efforts. They will also be a resource to the broader scientific community seeking to understand language complexity, diversity and universals.

This REU site recruits a diverse group of twelve undergraduate students of Linguistics. The project begins with a two-week intensive, hands-on training session on current best practice for recording languages (or areas of grammar within languages) that have not yet been adequately documented. Students learn directly from professional linguists and indigenous language experts how endangered languages are being modernized, digitized, and expanded into new technological domains. In weeks three and four, students participate in a two-week field practicum. Working in teams led by indigenous language experts, students help record basic and specialized lexica, folk taxonomies, toponyms, and ethno-biological nomenclature. They explore and help document the rich knowledge base in each language that uniquely encodes the natural environment (flora, fauna, weather, geography, etc.). They also learn current best practices in sustaining indigenous languages and supporting global language diversity. The program concludes with a one-week workshop, where students reflect on their collaborative fieldwork and prepare presentations for their respective home institutions. This REU Site project is co-funded by the Documenting Endangered Languages program and also by the International Science and Engineering Program.